The Linear Programming Approach to Optimal Stochasic Control

9803490
Stockbridge

The main goal of the proposed research is to further develop the linear
programming approach to optimal stochastic control and to make this
solution technique applicable to all types of stochastic control
problems, including stopping time problems, impulse control, singular
control and adaptive control problems. This approach will also be used
to analyze complex models in areas as diverse as mathematical finance and
quality control.

A major benefit of the LP approach is that it naturally lends itself
to numerical methods. Two approaches will be pursued: a discretization
technique and the method of moments. A significant part of the grant
will be devoted to implementing and testing numerical schemes using
linear programming software to compute optimal controls.